Seismological Studies of Oceanic Earthquakes

Near source structural and bathymetric effects present a significant problem for resolution of earthquake source parameters using teleseismic body waveforms. Using synthetic waveforms computed for planar dipping structures, we propose to evaluate the sensitivity of various inverse techniques to different structural situations. We will use more advanced ray techniques to compute seismograms for realistic bathymetry and address the applicability of the planar dipping interface approximation in various situations. Application of these techniques will allow better resolution of the source characteristics of shallow earthquakes in regions of complex structure and bathymetry such as subduction zones.